RUI: Casting Light On A Semi-Visible Higgs Boson With Novel Triggers At ATLAS

This award will provide support for work on the ATLAS experiment at the Large Hadron Collider (LHC) at CERN, a particle physics laboratory in Geneva, Switzerland. The LHC machine and ATLAS, a large particle detector facility, were built as basic science tools using funds from NSF and other agencies around the world. The 2012 discovery, at the LHC, of a Higgs boson with mass close to 125 GeV represents both the crowning achievement of the Standard Model of particle physics and a hint beyond it - how can a light Higgs boson possibly survive huge, destabilizing quantum effects without new, undiscovered physics? The next step in the experiments is to look for evidence for physics Beyond the Standard Model (BSM) that might, for instance, account for the presence of the mysterious "Dark Matter" that makes up so much of the mass of the universe. The LHC is currently just starting a new phase, Run 2, at higher energy and increased event samples. It is possible that evidence for BSM physics could emerge in the next couple of years.

This award will develop tools for detecting new BSM physics by improving the trigger selection using machine learning (ML) techniques. These new triggers will improve the selectivity of the ATLAS detector for BSM physics in the Higgs decays to two photons and other channels where new BSM particles could show up. This RUI will allow students to directly take part in the analysis of the LHC data and learn new ML techniques. They will also develop outreach programs with local high schools.